A Comparative Study of Risk Assessment and Management in theU.S. and Japan

The second workshop on "Comparative Studies of Risk Assessment and Management in the U.S. and Japan" will continue the activities started with the first workshop that took place in Japan, October 1984. During the meeting, case studies on such topics flood control, dam safety, groundwater contamination, earthquake and hazardous waste control will be examined and compared. For each case, areas such as the assessment of probabilistic risk the handling of uncertainty, the techniques used for quantifying risk functions, the status of databases, and the management of information will be discussed. Recommendations for research needed will be made and proceedings will be published.